FRG: Collaborative Research: Fully nonlinear, three-dimensional, surface water waves in arbitrary depth

The overall objectives of this work are to develop a thorough
understanding of three-dimensional water waves of finite amplitude, and
ultimately to develop a practical model to describe these waves efficiently.
A model that is both accurate and computationally efficient could have
many practical applications. Specific problems to be addressed are: (1) the
existence and stability of three-dimensional, doubly-periodic, traveling
water-wave patterns, through the full range of depths; (2) the prevalence
of hexagonal, rectangular or crescent-shaped waves (or other multiply
periodic wave patterns) among ocean waves; (3) the long-wave and
modulational descriptions of water waves, and the subsequent stability
analyses that are feasible in these cases; (4) the design and implementation
of algorithms to make practical use of exact solutions of asymptotic
models in shallow and deep water; (5) the relation between the detailed
dynamics of three-dimensional, nonlinear waves and some commonly
used ocean-wave transport models; and (6) the impact of a detailed local
description of nonlinear wave dynamics on these transport models, in the
presence of large amplitude nonlinear waves or under conditions of
nonlinear wave focusing. These problems will be studied using analysis,
computation, asymptotics, and algebraic geometry, involving the full
equations and approximate models, all in conjunction with state-of-the-art
physical experiments.

The destructive force of large-amplitude ocean waves is well known.
Large-scale ocean waves have a major impact on the design of ocean-
going ships, of off-shore oil platforms, and of other structures in a coastal
environment. These waves also impact the scheduling and routing of
shipping patterns, and they strongly affect air-sea transport processes. Yet
most theoretical models of ocean waves now in use are based on waves of
small amplitude. In this investigation we focus on developing a thorough
understanding of large-amplitude waves. The ultimate goal is to develop a
practical, mathematical model that may be used operationally in the
applications listed above. In particular, the investigators plan to build on
their recent work in which they have observed certain coherent patterns of
large-amplitude waves. They have observed these patterns in laboratory
experiments, as solutions to the well-known equations of water waves, and
as solutions to other equations that are (more) approximate models of
water waves. Their work involves a variety of mathematical and
computational tools as well as state-of-the-art laboratory experiments. In
the present work the investigators will combine all of their tools to
understand and describe these coherent patterns and to use them as the
building blocks for a practical model of ocean waves.